Facing System Complexity in the Undergraduate Digital Lab

This project seeks to update the teaching of digital design by having students face the challenges of complex systems from their first exposure to the subject. The greatest challenge of modern computer design is trying to manage complexity in a quick and reliable fashion. Modern hardware design is dominated by tools that extend the designer's capabilities in synthesis, simulation, and test. Teaching digital design, even its basics, without exploring both classical principles and contemporary methods is anachronistic. This project will add proper test instrumentation for system analysis to an undergraduate digital laboratory that already includes computer design and simulation tools. The proposal requests funds to help purchase six low-end logic analyzers, and one more capable analyzer, all with printers. Such instruments are the only proper tool for analyzing and debugging anything beyond trivial circuits running a slow speeds. The logic analyzers will not only be used to support project design, but will for the basis for a series of lecture demonstrations and lab assignments that will be documented and available to other institutions.